Science, Engineering and Public Policy (SEPP) Education Workshop

It has been twenty years between the assessment of the state of the fields of science and engineering policy by Skolnikoff and that of the AAAS Committee on Science and Public Policy in 1986. Both science and science policy changed during this period, as has the demand for science policy analysts. New directions may be needed in the education of individuals for science and engineering policy analysis. This workshop will bring together the heads of leading academic centers in science and engineering policy, along with individuals from emerging programs, from the "user" community, and from the community of employers of science policy analysts. They will discuss the extent to which they believe they share a common purpose and will, if indicated, develop contact mechanisms among them. They will examine curriculum with intent of bringing greater substantive coherence to the field.